Linking Mathematical Operations and Their Applications

The primary objective of this project is to produce prototypical materials which will better enable students to link the mathematical operations of arithmetic with their applications. The target audience for the materials tryout will be average and below average middle school students, and in some cases adapted and given to younger or more able students as well. A secondary objective will be to explore means of involving natural settings, rather than the traditional "story" problems, in the lessons. The rationale for this project is based on recent research which suggests that many middle school students approach mathematical story problems, the most common school form of applications of the arithmetic operations, with strategies that are not based on possible meanings for the operations. Although some of these strategies may give success on many one-step story problems with whole numbers, their use with multi-step problems involving fractions or decimals is unlikely to give correct solutions. This project will develop and field test with middle school students, materials to give a greater emphasis to meanings for the operations. The outcome from the materials should provide improvement in the students' approaches to applications of the operations, both in school and in natural settings. Teachers, supervisors, publishers, psychologists, and subject-matter experts will be called on to help insure that the materials have maximum usability. Dissemination plans include distribution of the materials to text publishers, to give them prototypes and research support for such lessons in their textbooks.